SBIR Phase I: Scalable Computer Clusters Applied to Sensing and Control of Intelligent Manipulators for Agile Manufacturing

This Small Business Innovation Research (SBIR) Phase I project addresses the effort to design and
prototype a new high-performance but low-cost integrated robotic manipulator comprising of the tight
integration of mechanical, electrical, and computational subsystems. A significant part of the effort is to
address the computational challenges involved in developing a new generation of intelligent robotic
manipulators. Real-time general vision processing and dexterous planning, for example, are not
feasible using conventional embedded processors. The consequence is that advanced robotic
applications are only possible in environments where the robotic arm can outsource computationally
expensive processes to more powerful computers. Low-power, High-Performance Computing (HPC)
clusters will be used to extend what is currently possible in autonomous and semi-autonomous robotic
manipulator systems. Therefore a research effort is to develop a scalable high-level intelligence
framework applied to robotic manipulators, and to implement robust and real-time algorithms that take
advantage of highly parallel computing environments. Application computations will integrate
seamlessly across wireless and wired networks of heterogeneous robotic and computer systems. The
goal is a highly capable, computationally scalable, low-cost intelligent robotic arm platform for
research and light industry, which can easily be adapted to a variety of complex applications.

The broader impact/commercial potential of this project is to fill a market niche between the low-end
robotic manipulators that have little commercial potential and the high-end robotic arms that are
expensive and have high operating costs for setup and operation. High-performance computation
integrated with advanced robotic manipulator systems are applicable for agile light industry and other
desktop manipulator applications in unstructured environments. This will have a tremendous impact on
the future of commercial robotics and make capable robotic systems affordable to small manufacturing
businesses. Highly parallel computing power will greatly increase the range of applications and
environments to which robots are suited. For example, an intelligent robotic manipulator can be used in
agricultural applications or autonomously caring for plants in highly unstructured environments. The
same manipulator could easily be adapted for use in a classroom setting; with a simple scripting
interface students can experiment with advanced robotic control, allowing them to concentrate on
discovering exciting new applications. This creates a broad market in academic and industrial settings,
both for highly-capable, low-cost intelligent robotic manipulators for agile manufacturing and for lowpower
HPC clusters applied to sensor network integration solutions in general.